Seventh International Nanotechnology Conference on Communication and Cooperation (INC7). To be Held May 16-19, 2011, in Tsukuba, Japan.

Objective: We are requesting $30,000 in travel funds from NSF to enable 12 faculty and students from the US to attend the Seventh International Nanotechnology Conference on Communications and Cooperation May 16-19, 201 in Tsukuba, Japan, details of the conference can be found at http://www.inc7.jp. This conference is being sponsored by SRC-SIA, NSF, IMEC, JEITA-JSI, and several US, European and Asian companies. It will feature invited speakers and poster presenters from industry, academia, and government who will describe advances in beyond-CMOS nanoelectronics, nanoenergy, nanophotonics and issues related to nanosocietal implications.

Intellectual Merit: The INC7 conference will bring together some of the world’s most renowned and technologically advanced thinkers to exchange information and ideas with regards tonanotechnology, nano-optics, nanoelectronics and other high-tech and current technology areas that are impacting mankind, nature and development. In addition, this arena provides a unique opportunity where academics and industry leaders can interact on issues in nanotechnology. Current issues that will be discussed at INC7 includes energy and environmental challenges facing mankind in particular targeting to decrease CO2 emissions and increase the viability of renewable energy solutions - and the associated societal implication and issues. Also, another major challenge that will be discussed includes a look at logic switch replacement technologies for CMOS and what alternate state variables are viable options. Semiconductor industry related questions and topics that will be discussed include nanoscale interconnects, thermal management, directed self-assembly, and fault tolerance. At a high level, the spirits of the meeting will target world regional groups co-operate to implement strategic and beneficial cooperative programs to progress mandkinds’ development through nanotechnology and its associated intellectual merits.

Broader Impact: The INC7 conference provides an arena where global senior researchers, industry leaders and policy makers from North America, Europe and Asia will hold discussions on a variety of efforts in nanoscience, along with opportunities for collaboration. Young scientists will also be invited to present posters highlighting their work and will give them a chance to exchange information and ideas with these technologists. The broader impact we foresee coming from the INC7 is the dissemination of relevant and current nanotechnology issues permeated to the nextgeneration of technology leaders. The event will provide an opportunity for academic, gov lab and industry to meet in a forum where the purpose of cooperation and coordination is targeted, leading to lasting collaborative science and technology relationships and alliances to more effectively solve and innovate solutions to many grand challenges faced today.